Renovation and Upgrading of X-ray Diffraction and X-ray Fluorescence Instruments

The detector units of the x-ray diffraction and x-ray fluorescence instruments in the Geology Department have been converted from out-of- date vacuum tube electronics to solid state circuitry. This provides increased stability and reliability so that these fundamental tools of geological study are used fully in regular course work in mineralogy, geochemistry, petrology and sedimentary petrography. In addition, the analytical potential of the x-ray fluorescence unit has been enhanced by the addition of a dual-target tungsten-chromium x-ray tube.